Microcomputers for Introductory and Advanced Undergraduate Physics Laboratories

A system of microcomputers will be used to enhance the general physics curriculum at the University of North Carolina, Asheville and to provide physics majors with experience in data acquisition, analysis and control. A set of four microcomputers equipped with scientific graphics and analysis software will be integrated into the laboratory portion of all introductory physics courses. A fifth microcomputer, equipped with data acquisition hardware and software, will be used to increase the extent to which computer data acquisition and control techniques are used by physics majors in the junior level experimental physics course. The main computer will also be used by students in upper level physics courses as well as senior research projects.